Workshop - Composition of Embedded Systems: Scientific and Industrial Issues

This NSF award provides co-funding, in cooperation with the Army Research Office, to enable US participation in an international workshop, titled "Composition of Embedded Systems: Scientific and Industrial Issues." This is the 13th in a series of Monterey workshops, initiated in 1993 and devoted to exploring the critical problems associated with cost-effective development of high-quality software systems. The 2006 workshop focuses on problems at the intersection of real-time systems and distributed systems, including: integration of components, managing concurrency, new definition of the "real-time" concept to support distribution, new runtime infrastructures, development methodologies, and safe and deterministic behavior.